NSF XPS Workshop for Exploiting Parallelism and Scalability

The NSF Exploiting Parallelism and Scalability (XPS) program provides an opportunity for its principal investigators to share and discuss the latest advances in parallel and distributed computing, demonstrate technical accomplishments, and inform NSF on promising future research directions. The technical program agenda will highlight the contributions of the participating NSF divisions and address the research themes of the XPS program, which aims to develop scientific foundations for continued US technological leadership and to strengthen education and training in cutting edge information technology.